Aerosal Synthesis of Ceramic Powders

Dr. Flagan has proposed to investigate the synthesis of high quality ceramic powders using two approaches: vapor precursor routes in which seed particle are grown by a combination of vapor and cluster deposition, and electrospray to produce fine droplets of liquid precursors. The experimental and modeling research will focus on the densification of agglomerate particles, particle growth by cluster deposition, and scale-up techniques of seeded aerosol reactors and electrosprays. Aerosol formation by vapor deposition and electrospray, sintering of agglomerate, and corresponding scale-up techniques are critical issues for the production of ceramic powders with engineered structures and properties.